Equipment: NSF Shipboard Scientific Support Equipment (SSSE) 2023

Requests are made by the University of Washington for Shipboard Scientific Support Equipment (SSSE) on R/V Thompson, a 274-foot general purpose, global class research vessel, and R/V Rachael Carson, a newly outfitted 72-foot coastal research vessel, both operated as part of the US Academic Research Fleet (ARF). In 2022, Thompson completed 268 funded days with 176 (66%) of them for NSF. For 2023, the vessel is scheduled for 315 total days with 180 (57%) days for NSF. Carson had 125 days in 2022 with 53 (42%) for NSF. For 2023, there are 68 days scheduled, 27 (40%) of which are for NSF.

With this proposal, UW provides technical descriptions and rationale for the acquisition of the following Shipboard Scientific Support Equipment:
1) Liquid Nitrogen Generator for R/V Thomas G. Thompson $39,099
2) (2) new ⅜” line general purpose winches for R/V Rachel Carson $127,650
3) Science water still for R/V Thomas G. Thompson $19,453
$186,202
Broader Impacts
The principal impact of the present proposal is under Merit Review Criterion 2 of the Proposal Guidelines (NSF 13-589). It provides infrastructure support for scientists to use the vessel and its shared-use instrumentation in support of their NSF-funded oceanographic research projects (which individually undergo separate review by the relevant research program of NSF). The acquisition, maintenance and operation of shared-use instrumentation allows NSF-funded researchers from any US university or lab access to working, calibrated instruments for their research, reducing the cost of that research, and expanding the base of potential researchers.